Sensorimotor Integration in the Behaving Cat

The locations of sensory stimuli are encoded in different frames of reference in different sensory systems. The visual system encodes the location of an object in retinocentric coordinates, while the auditory system, whose receptors are frequency not spatially sensitive, encodes the location of an object in head-centered coordinates. This project is designed to study how information from these two modalities is integrated to produce a single, unique, and coherent view of the perceptual world, and used to generate purposeful orienting responses. To accomplish this goal a combination of behavioral and physiological techniques will be used to study orienting behavior and its underlying physiology in a drug-free preparation. This approach is complemented by state of the art anatomical techniques aimed at characterizing the connectivity of the neural substrate underlying orienting behavior.
The study of how sensory information from different modalities is integrated and transformed into motor commands is one of the most important issues in systems neuroscience. Understanding how the different parts of the nervous system contribute to such processes provides important information for the diagnosis of neurological problems as well as information that may help in the design of robotic aids for individuals with impaired sensory/motor function.